EPWG: The Women's Triad Project for Science Education

9355871 Clark This project, the Women's Triad Project for Science Education, is directed toward enhancing gender equity in science education for teachers, scientists, and San Francisco Unified School District students. The strategy through which this mission will be accomplished centers around the establishment of science clubs for middle school girls. Each club will be coordinated by a team of two University of California, San Francisco women scientists, and one woman middle school teacher who will all serve as mentors for the students. The girls will gain hands-on experience in science investigation and use of tools, as well as opportunities to apply their skills and knowledge to group projects. The scientists will develop teaching and communication behaviors that foster gender equity in their own interactions with students and colleagues over the course of their careers. Workshops on gender equity will also be provided for other science teachers, male and female, at all grade levels, improving the overall climate for gender equity in the District. ***